Innovation: An Exhibit to Foster an Understanding of and Invite Participation in the Process of Innovation

9552566 LaBar The Tech Museum of Innovation developed a prototype of "Innovation," a proposed permanent 8,000 sq. ft. exhibit, which will be one of four major exhibit theme areas and will incorporate approximately 80 hands-on, interactive experiences which promote critical and innovative thinking, invention and problem solving. The exhibit is designed to introduce visitors of all ages to advanced technology and the process of innovation from idea to usable product. The exhibit will use engaging techniques such as "immersive environments," "story lines," "open-ended elements," and the "challenge approach." The target audience is the general visitor of all ages.